Town Hall Meetings at American Chemical Society National Meetings

This award supports an initiative by Professor Madeleine M. Joullie of the University of Pennsylvania to provide vital information to the chemical community on NSF-supported programs focussing on chemical research and education. The Town Hall Meetings will be conducted during the next four National American Chemical Society Meetings and thus will allow conference participants from diverse geographic areas (New Orleans (Spring 2008), Philadelphia (Fall 2008), Salt Lake City (Spring 2009), and Washington, DC (Fall 2009)) to participate. At the request of the organizer, NSF staff will be made available to answer questions on specific NSF-wide and Divisional solicitations as well as individual questions from current and potential investigators.